Synthetic Nonlinear Materials Based on Asymmetric Quantum Well Structures

The nonlinear optical properties of quantum-confined structures and superlattices in GaAs-GaAlAs semiconductors has been of significant recent interest. The PI's previous research have shown that by growing asymmetric quantum-well and superlattice structures, one can achieve second-order nonlinear susceptibilities otherwise unobtainable in conventional materials and comparable in magnitude to those of organic nonlinear materials, without limitations usually found in organic materials. The practical implementation of the results can find important applications in doubling the frequency of semiconductor injection lasers, waveguide couplers, various sensors, optical logic elements, novel ultra-fast and very sensitive photodetectors, and in testing of electronic circuits. The current research will investigate more interesting heterostructures involving materials with various band-offset combinations, as well as some of the novel opto-electronic devices based on asymmetric quantum-well structures. Theoretical work will involve enhancement of the previous model in order to study a wider range of materials and geometries and in order to better predict the performance of the devices. Experiments on nonlinear and time- resolved spectroscopy of asymmetric quantum wells will be conducted in a new laboratory currently being established. The results of the research could be an important step toward engineering of novel nonlinear materials and opto-electronic devices.